HSI Implementation and Evaluation Project: CAMINOS (Creating A More Inclusive Network and Orientation through STEM Community Engagement)

With support from the Improving Undergraduate STEM Education: Hispanic‐Serving
Institutions (HSI Program), this Track 2 project aims to increase participation in scholarly STEM
experiences for Latiné and other historically underserved students at Northern Arizona
University to promote culturally sustaining values, career competencies and academic success.
These populations continue to be underrepresented in STEM fields, excluding their voices from
the important process of solving pressing societal problems. Participation in paid undergraduate
research, internships, and other scholarly experiences support students' sense of belonging in
STEM, and develop career competencies, important for economic mobility. These experiences
can increase the motivation to persist in STEM and pursue STEM careers. In this project, lower
division undergraduate students will be exposed to scholarly STEM experiences, while upper
division students will participate in mentored internships to communicate research outcomes
with the broader community and local youth. Participation in scholarly STEM experiences that
benefit society builds on students’ cultural assets and supports the integration of cultural and
science identities, important for increasing representation in STEM. To further support students,
a new culturally responsive mentoring module will be incorporated into existing faculty and staff
mentor training. Outcomes for scholars will include development of career competencies, and
increases in STEM identity, academic success, and retention to graduation.

The specific aims of the project are 1. to prepare lower division students to be
competitive for scholarly STEM experiences, 2. to provide upper division science and education
students science communication internships integrating cultural assets and career
competencies, 3. to offer research mentors culturally responsive mentor training to augment
current mentor training opportunities, and 4. to generate new knowledge about how
participation in scholarly STEM experiences impacts Latiné and other underserved minority
students' identities and sense of belonging in STEM. The research study will use a concurrent
mixed methods design to offer a fuller understanding of the impact for historically underserved
students and their intersectional identities when culturally responsive practices and cultural
assets are intentionally integrated into program design. Research and evaluation findings will
inform development of co‐curricular STEM experiences for historically underserved populations
while also addressing cultural and STEM identities. Additionally, the inclusion of elementary
education students will contribute to knowledge about how engaging with the scientific
research community through informal experiences can contribute to the development of science
teacher identities. Findings will be disseminated to the broader audience of postsecondary
institutions serving high numbers of Latiné and other traditionally underserved students, and
the local community. The HSI Program aims to enhance undergraduate STEM education and
build capacity at HSIs. Projects supported by the HSI Program will also generate new knowledge
on how to achieve these aims